Task Order A with Friday Systems Services (FSS) (Environmental Technology)

9531668 ABSTRACT (Task Order "A") This task order with Friday Systems Services (FSS) deals with providing support for the joint NSF/EPA partnership activities in the area of technology for a sustainable environment (environmental technology). The primary type of support is in the area of developing and maintaining a computer information data base of fundamental research projects in NSF and EPA. There are three major subtasks. The first subtask deals with FSS helping to provide CTS/NSF project inventories in the field of fundamental research on environmental technology. List of projects supported by NSF and EPA will be prepared A joint NSF/EPA grantees conference will be organized and held. The second subtask involves support for startup planning for ETI and/or technology for a sustainable environment activities in FY 96. The third subtask addresses maintaining the data base for the FY 95 NSF/EPA partnership grants and declinations. These activities involve a number of programs at EPA and a number of divisions within NSF. Support for this task order is provided indirectly by EPA.